Integrating Graphical, Numerical, and Analytical (GNA) Approaches in Community College Mathematics Offerings Using Palmtop Computers & Graphing Calculators

This project is integrating graphical, numerical, and analytical (GNA) approaches in all levels of the mathematics program at Adirondack Community College through the use of classroom sets of handheld palm-top computers with DERIVE and graphing calculators. Pilot programs at Adirondack have shown that it is possible to transform the traditional mathematics classroom into an active laboratory environment with cooperative groups of students exploring concepts and real world problems. The project is producing curricular and instructional changes resulting from the GNA approaches in a wide variety of courses ranging from arithmetic through differential equations. Corresponding reforms in student outcomes include an improvement in problem solving and critical thinking skills, concept attainment, motivation, and making connections. This project is serving as a model of a hands-on, active mathematics learning experience for both high schools and universities.